Presidential Young Investigator Award: Combinatorial Issues in Large-Scale Network Design

Research concerns the design and analysis of algorithms for discrete optimization problems, and the study of discrete structures in general. Two areas of special interest are: (1) the study of certain "obstructions", called tangles, to small tree- or path-width, which play a crucial role in the Graph Minors theory; and (2) to investigate a problem of interest in VLSI (very large system integration) chip and communication network switch design, involving the minimum number of edge crossings when drawing a graph in the plane. There are several open problems concerning crossing numbers, one of the most important being their efficient approximation (there are no known results, either positive or negative). The tools from the theory of arrangements will be employed.